Sudden Hearing Loss and Role of Hearing in Speech

The speech of a number of victims of sudden hearing loss who have previously had normal speech and hearing will be analyzed. The local medical community will identify such persons at an early stage of their deafness, and any changes which may occur in their speech over the three-year course of the project will be tracked. On the basis of preliminary work, it has been established that there are wide variations in the developmental patterns of such subjects' speech after deafness. Recordings of their speech made at regular intervals will be analyzed according to a number of relevant parameters, and the results will be used to test a number of specific hypotheses about the role of hearing in speech, hypotheses which can account satisfactorily for the full range of observable data. To the extent that time and resources allow, the speech of normally hearing subjects whose hearing has temporarily been blocked by one of a variety of techniques will be examined.